CAREER: Combining research on dynamic metastability and hydrodynamic limits with a multifaceted outreach plan

Westdickenberg
DMS-0955051

The investigator takes up problems in the areas of (i) slow
coarsening or dynamic metastability of gradient flows, and (ii)
logarithmic Sobolev inequalities (LSI) and the hydrodynamic
limit. In the first part, the investigator and collaborators
apply the abstract sufficient condition for dynamic metastability
developed by Felix Otto and the PI to the Cahn-Hilliard Equation
and then develop new but related methods to tackle the more
applied problem of coarsening rates in two-dimensional epitaxial
growth models. In the second part, the investigator and
collaborators push forward their two-scale method for LSI and the
hydrodynamic limit to prove convergence of the microscopic
entropy to macroscopic entropy under general sufficient
conditions. The educational and outreach component of the
proposal encourages and supports women in mathematics and
disseminates knowledge on multiple levels both in coordination
with the research plans detailed above and through four explicit
initiatives headed by the PI.

The work of this project focuses on understanding the way
that energy (or entropy) and energy dissipation (or entropy
dissipation) affect the nonlinear dynamics of a physical system.
In general, science has a good understanding of global minimizers
but a very weak understanding of local minimizers and pathways
between them -- where many physical systems spend all of their
time. A broader understanding of multiscale energy landscapes is
of both scientific and practical importance; for instance,
epitaxial growth models have implications for nanotechnology and
semiconductor development, technology with impact in medicine,
communications technology, and other fields. The education and
outreach component of the proposal addresses a critical need to
recruit and keep more women in mathematics, increase diversity in
the sciences, and build international ties between the scientific
communities.